Expert System Workshop for Engineering Faculty Enhancement

The Expert System Workshop for Faculty Enhancement is providing six hands-on workshops for engineering, science, and mathematics faculty in the expert system applications area of artificial intelligence. Each of the six workshops lasts five days. Each faculty member in attendance has the use of an enhanced IBM PC/AT for direct involvement in the study of expert systems theory and applications. The workshops are addressing such topics as: Introduction to Artificial Intelligence and Expert Systems, Structure of Programs including Inference Engines and Knowledge Bases, Tools and Programs including LISP, PROLOG, PC Plus, Shells, Analysis of Programming Concepts, including Frames, Rules, Chaining and Parameters. Expert systems and artificial intelligence are the leading edge areas of fifth generation computing machines and knowledge of their nature and uses can effectively be integrated into a faculty member's research and teaching. It is, furthermore, the case that expert systems and artificial intelligence can be adapted to teaching and training of students and is, therefore, a particularly appropriate area of inquiry for engineering, science and mathematics faculty. //